POWRE: The Substorm Wave Model Including Coupling with the Ionosphere

Recent studies of magnetospheric substorms have shown that the initiation of a substorm is often accompanied by significant levels of wave activity. It has been suggested that this wave activity may play an important role in the process of substorm onset. This project will examine the nonlinear evolution of field-line resonances (FLRs) associated with substorms by using the magnetohydrodynamic equations with a generalized Ohm's law. The FLR model will be improved by including the reflection of Alfven waves off the ionosphere, the nonlinear feedback due to the inhomogeneity of the ionospheric conductance and the dynamic evolution of the plasma sheet. Both theoretical and numerical simulation studies will be pursued and the results will be compared with data from the Canadian CANOPUS instruments.